Frontiers of Polymer Research, International Conference in New Delhi, India, January 20-25, 1991, Group Travel Award inU.S. and Indian Currencies.

Descripton: Under this project, ten U.S. scientists will participate in the "International Conference on Frontiers of Polymer Research" planned for January 20-25, 1991 in New Delhi, India. The Indian organizer is Dr. Ashok Misra, professor at the Indian Institute of Technology (IIT) in New Delhi. Three areas of polymer research considered to be at the forefront will be covered. These are: polymers for photonics, where nonlinear optical properties of polymers show great promise; polymers for electronics, where new conduction mechanisms and photophysics have generated considerable enthusiasm; and high performance polymers which exhibit exceptionally high mechanical strength coupled with lightweight. The conference will include a workshop to identify research opportunties, especially where collaboration can be effected. The program committee include scientists from India, the U.S., Japan, FRG, Austria, Netherlands, Italy and Switzerland, thus a broad international participation is expected. Conference proceedings is expected to be published as well as recommendations on research needs. Scope: The topics of the conference are quite timely, because of recent discovery in the physics and photophysical properties of new polymers, and the new research approaches to understanding and synthesizing their materials. The U.S. and India both are conducting extensive research in academic and industrial laboratories. The two cooperating scientists are well known and active researchers in the field. The conference is quite likely to have a positive impact on U.S.-India cooperation in scientific research in chemistry and polymerscience.